Collaborative Research: ITR: The Geowall - Stereo Visualization for the Earth Sciences

0218918
Johnson

Development of computer-aided stereographic projection techniques has greatly aided interpretation of Earth Science structure and processes. We have developed and implemented an affordable PC/Linux based stereo projection system ("the Geowall") that can be used by individual research groups and within the undergraduate curriculum. The main goals of this collaborative Information Technology Research project between the University of Michigan (EAR-
0219246; PI: P. van Keken) and the University of Illinois at Chicago are to greatly improve the content development and delivery for Earth Science applications. This will include the development of conversion software and viewers for existing Earth Science applications; implementation of tools for interaction and manipulation of 3D data; testing of these tools in Earth Science departments; improvement of the collaborative environment for work between groups of researchers; and dissemination through the Geowall consortium (geowall.org).
***